Collaborative Reseach: Fullerenes and the Extraterrestrial Flux of Helium to the Surface of the Earth over Geologic Time

This project will analyze Cenozoic deep sea sediments for their content of 3 He in fullereness and in mineral phases in order to partition the 3 He budget among terrestrial and extraterrestrial phases, and to assess the variation in extraterrestrial flux of noble gases to the planet.